The 41st International Conference of Electron, Ion and Photon Beam Technology and Nanofabrication, to be held in Dana Point, CA, May 27-May 30, 1997

9712488 Smith Support is provided in the amount $5,000, to enable graduate students to attend The 41st International Conference on Electron, Ion and Photon Beam Technology and Nanofabrication, 1997, to be held in Dana Point, California, May 27- May 30, 1997. The Conference is sponsored by The American Vacuum Society in cooperation with The Electron Device Society of the IEEE, and The Optical Society of America. ***